The Utility of NCEP/NCAR "Reanalysis" Fields for Arctic Climate Studies

ABSTRACT OPP-9614297 SERREZE, MARK UNIVERSITY OF COLORADO The research project will examine the fluctuations in fresh water input into the Arctic by utilizing output from historical weather prediction models in the Arctic as a means for predicting climate variables in the region. The model output will be validated using observed data. The resulting calibrated models of Arctic temperature and precipitation, for example, will be used to examine the relationship between climate variables and fresh water input, circulation fields, and sea ice extent. The results of this project will provide a very important set of predicted climate parameters for regions where observational data is scarce or absent. Therefore the output of the derived data will serve as input for other models that require closely-spaced observational data that is not available directly.